SBIR Phase II: Microchip Assay for Glycosylated Hemoglobin

This Small Business Innovation Research (SBIR) Phase II project aims at developing the next generation of diabetic monitoring devices that will allow the measurement of multiple markers of disease regulation and progression using an innovative lab-on-a-chip technology. The project will develop the first integrated microchip CE device for measurement of an important maker of diabetes.

This technology will impact patient monitoring for disease progression and therapeutic efficacy by following biomarker more efficiently as well as being used at the point of care. This eliminates the time and cost currently required to perform follow up laboratory tests. The technology approaches the chemistry of biomarkers from a non-traditional sensor mechanism and shows great promise for the detection and use of biomarkers for specific diseases.